Acquistion of The Nanomechanical Test System for Undergraduate Research and Education

0321106

Abstract

The Hysitron TriboScope Nanomechanical test instrument is a quantitative
depth-sensing nanoindentation and nanoscratch system which is interfaced with a scanning
probe microscope (SPM) to provide in-situ imaging. The acquisition of the TriboScope Nanomechanical Test System will enable us to
address some of the open issues in the field of nanoscale structural components. Two of
the open problems include (a) the inconsistent production and fabrication techniques which
lead to varied results for the same nanosystem, (b) the procurement of reliable and
fundamental data banks of durability and material properties, and c) the computational
modeling of nanostructured materials which utilize realistic material properties. The
types of experiments that will be performed on this test system will allow for us to
directly address issues (b) and (c). The tests that will be performed include Modulus,
hardness, fracture toughness measurements, and the generation of force vs. displacement
curves. Nanostructures represent a new field of science that can extend the size, efficiency and
design of well-known materials. As this field has progressed, more elaborate structures
have been generated that require a better understanding and more consistent methodology
for obtaining reliable material properties.
With the nation's most successful Dual-Degree Engineering program for African-American
males, Morehouse College is well positioned to have a significant impact on the production
of engineers of African American lineage by increasing the number and the retention of
students in the engineering and applied physics programs. This equipment will not only serve
undergraduates at Morehouse College, but will also serve neighboring undergraduate liberal
arts colleges in the AUC. Colleges in the consortium directly impacted by the procurement
of this equipment include Clark Atlanta University, Morris Brown College, and Spelman
College, a private liberal arts Historically Black College for African-American females.
Students from these colleges are not only allowed to cross-register and take classes at
the neighboring schools, but may also complete research projects. Therefore, the research
opportunities at Morehouse will also have a direct impact on the students at Clark
Atlanta, Morris Brown and Spelman College.